Microcomputer Based Psychology Student Research Laboratory

The purpose of this project is to develop a microcomputer based psychology student research laboratory. Perhaps the most important research tool of contemporary psychology is the microcomputer, with its ability to present a variety of stimuli, and to collect subjects' responses to them. Thus, an important part of preparation for today's undergraduates must involve providing them with opportunities to learn to use microcomputers, to design, set up, and run psychological research, as well as to collect the data generated thereby, analyze it, and prepare their findings for communication with other scholars. The project is providing such learning experiences for psychology students across a spectrum of courses. Students are being introduced to basic procedures in their introductory courses, and to more advanced procedures in more advanced courses, including courses which specifically focus on principles and methods of research. Funding provided six APPLE microcomputers, peripheral hardware for Networking, and selected software to complement the software library.